Biotechnology Process Engineering Research Center

9402065 WANG The vision of the Biotechnology Process Engineering Center is directed towards the technological barriers in the manufacturing of therapeutic proteins. The research is organized in two areas: Therapeutic Protein Production; and Therapeutic Protein Aggregation, Stability, Formulation and Delivery. Research in the first area will be directed towards cellular physiology, metabolism, and generics coupled with advanced concepts in bioanalytical monitoring and systems' diagnostic in aid of bioreactor performances and assurance of protein quality. Research in the second area will be directed toward protein aggregation, stability, formulation and delivery. The educational programs of the Center are designed to ensure both breadth and depth with a balance in scientific and engineering principles in the training of students. The goal is to create a new breed of professionals for the biotechnology sector as future leaders in industry, university and government. Educational experience is intended to provide an integrated view of biotechnology and bioprocessing within an atmosphere of cross- disciplinary and team research, exposing students to the industrial viewpoint. Industrial collaboration and technology transfer are achieved through a number of organized efforts. Industry inputs in the planning of the Center's overall activities through two annual meetings with Industrial Advisory Board members. In addition, an Industrial Consortium Program is in place having 69 companies representing the entire biotechnology sector ranging from small (45%), medium (25%), and large (30%) businesses. Workshops and formal discussions with the Consortium members are held two to four times per year to solicit their inputs and to develop collaborative research programs. The Center has in place a cross-disciplinary team of 11 faculty members from three departments: Biology, Chemistry and Chemical Engineering. Outreach activities have involved formal participation of two other universities, Purdue University and Iowa State University. The second outreach activity is the Research Experiences for Undergraduates (REU) where annually 10 to 12 non- students perform research at the Center. This award provides a new ERC award for the Center through an intial five-year cooperative agreement. ***